Children's Construction of Arithmetical Algorithms in SocialContext

As part of an on-going research program that extends a currently funded project, we will study third graders' construction of arithmetical algorithms in the context of classroom instruction compatible with constructivism. The predominant teaching strategy will be small group problem solving followed by whole class discussions of children's solutions. Both clinical interviews and a one-year classroom teaching experiment will be conducted during the project. Conceptual models that account for children's construction of conceptually-based algorithms for adding and subtracting three-digit and for multiplying and dividing two- digit by one-digit numbers will be developed. The sociological aspect of the project will focus on the relationship between both whole class and small group social interaction patterns and opportunities to construct arithmetical knowledge. Key constructs include students' beliefs, obligations, expectations, and emotional acts in the classroom. Third grade instructional activities will be developed during the classroom teaching experiment. The third grade instructional activities will be developed during the classroom experiment. The revised materials will be used by a minimum of ten teachers in the third year of the project. Our goal in coordinating cognitive and social analyses is to contribute to the wider enterprise of developing a coherent framework within which to understand both learning and teaching.